Computers, Graphics and Research

The Pennsylvania State University will initiate a two-week, residential, Young Scholars project in Mathematics, Computer Science, and Engineering for 25 students in grades 11-12. The project is a pre-engineering program for high school students, taught by tenured engineering faculty. In computing, students study numerical methods, graphics, CAD, and fractals. They perform six original experiments on the properties of materials, including the use of scanning electron microscopy, ultrasonic detection, laser scanning technology, image processing, and expert systems. The social context of technology and engineering careers are also studied. A follow-up project is required. Algebra-II and Trigonometry are required. The program is located at the University Park campus of The Pennsylvania State University. All tuition, room, board, and textbooks are free. Five stipends of $200 are available, based on need, for travel and lost earnings.